Collaborative Research: Scaling and infinite divisibility in models of coarsening and other dynamic selection problems

Menon
0605006
Pego
0604420

The investigators collaborate in developing mathematical
methods that improve the understanding of dynamic behavior in
complex nonlinear systems. The focus is on the universal trend
to self-similarity, or dynamic scaling, in a variety of physical
settings, such as clustering of colloids in physical chemistry,
selection of nonlinear waves in fluid mechanics and models of
population biology, and coarsening of nanoscale islands in
materials science. The goal is to devise a unified framework for
the treatment of these problems based on methods from dynamical
systems, partial differential equations, and probability theory.
The work is driven by close analogies between the mathematical
ideas of infinite divisibilty and limit theorems for heavy-tailed
distributions in probability theory, and apparently unrelated
problems of dynamic scaling and selection in these diverse
physical settings.

Progress in this program leads to deeper understanding of
how order emerges from complexity in a variety of problems of
fundamental scientific interest in the areas of aerosol physics,
fluid mechanics, materials science, and physical chemistry. The
work on island coarsening promises to improve the physical
modeling of nanoscale step-terrace structures on crystalline
surfaces. The work on coagulation aims to improve our
understanding of models for the formation of clouds, smoke, dust
and haze, which is of potential environmental importance. A
significant outcome is to link progress on apparently unconnected
problems with a basic mathematical framework that ties together
probability and dynamical systems theory and that broadly
facilitates the transfer of insights from one area to another.